COVID-19 Science in Support of Local Decision-Making

COVID-19 continues to pose a daunting challenge that requires effective use of science to manage community response and recovery. The goals of this project are to apply community engagement principles in a series of virtual workshops hosted in partnership with local communities around Washington State that will respond directly to local needs for scientific discourse about COVID-19. These workshops will facilitate the exchange of knowledge and sharing of experiences in science-informed decision making and help local scientists understand how to apply their expertise to inform decisionmakers. The outcomes of this project will increase the understanding of how to use local-level science-for-policy discourse to address critical issues within and beyond the current pandemic management and recovery across the state and the country.

This project centers around a series of virtual workshops co-designed and co-created with local decisionmakers, community leaders, and participating scientists in diverse parts of Washington State. These workshops will be designed to cultivate cross-sector and multidisciplinary dialogues with scientists and local communities about key issues identified by community leaders related to the COVID-19 pandemic response and recovery. This project will advance knowledge in participatory design and public engagement around science for policy. The project’s co-design and engagement processes will create a replicable approach for providing greater science-for-policy discourse and innovation at the state and local levels.